Medium Energy Probes for Nucleons and Nuclei

This 6 month supplement ot NSF Grant No. INT-8509267 between M. Furic, Zagreb University and Ed V. Hungerford, University of Houston was approved by the U.S.-Yugoslavia Joint Board for Scientific and Technological Cooperation in May 1988. Supplemental support is recommended to complete the joint research project on medium energy probes for nucleons and nucleii.